Low Density Parity Check Codes for Channels with Memory

In recent years, low-density parity-check (LDPC) codes have been shown
to have the power to perform within thousandths of decibels of the
Shannon channel capacity of memoryless communications channels. This
project seeks to answer a natural question: how good are these codes
for transmission over channels with memory? The channels under
consideration are Markovian memory channels, including both channels
where the memory is dependent and independent of the transmitted
symbols. Such channels arise in several applications, such as disk
drives or other storage media.

The analysis and design of LDPC codes has benefited from representing
these codes as graphs, where the decoding is done by passing messages
along the graph edges. This graph model allows an analysis using
martingales that underlies recent advances, including the density
evolution design technique. The investigators study how to extend
this graphical modeling approach to channels with memory. More
specifically, the project is divided into four major tasks:
designing density evolution algorithms under new channel models;
evaluating noise tolerance thresholds; engineering codes for short
block lengths and rapid decoding; and achieving spectral shaping with
low-density parity-check codes.